CC*DNI Networking Infrastructure: Data Driven Research-Wise Network Infrastructure Upgrade ("DaRWiN")

The Data Driven Research-Wise Network Infrastructure Upgrade (DaRWiN) project upgrades the network infrastructure and external connectivity at the University of Missouri-Kansas City to significantly address research and educational needs of science and engineering for the next five to seven years. This project i) enhances the connectivity between the two physical locations of the university to an ultra-high-speed 100 Gbps backbone, ii) upgrades the connectivity among the core research buildings to 10 Gbps high speed optical links, and iii) establishes dedicated 10 Gbps connections for research to external regional entities that amplifies existing research collaborations among multiple disciplines and foster new opportunities.

This project provides an enhanced platform for solving a variety of single-, inter-, and multi-disciplinary problems across several fields of science and engineering. The project particularly assists and promotes the following research activities: end-to-end campus network performance management, large data movement service research, chemical fingerprinting and sequencing research, computational physics and electronic structure research, and human balance and ambulation research. The project broadly impacts both interdisciplinary research and education throughout the university at both the graduate and the undergraduate level.